Particle Diameter Effects and the Use of Consolidated Media in Adsorption and Ion Exchange

Professor Phillip C. Wankat of Purdue has been a leading investigator in the use of absorption as an industrial purification method. His latest research proposal covers a series of experiments to determine better methods to scale up this important process. The theory he has developed indicates that the ratio of column length to the square of the absorbent diameter, and cycle period to column length should be kept constant as mass through-puts are increased. This method should be an improvement with strong economic implications for commercial practice. The applications would include absorption, ion-exchange, and chromatography. I recommend that Purdue Research Foundation be given a 3-year continuing grant to support Professor Wankat's research. The amounts recommended are $56,517 for FY86, $55,197 for FY87, and $55,117 for FY88.